Historical Dimensions of Sustainability in the N. Atlantic ca. 2,000 BP- Present

ABSTRACT OPP-9523519 McGovern/Amorosi/Ogilvie This proposal is for support of an interdisciplinary, international research group studying human/environmental interactions over the past 2000 years in the North Atlantic region. The North Atlantic Biocultural Organization (NABO) has developed a network of researchers from over 40 organizations and ten nations. Operating under the theoretical orientation of historical ecology, NABO workers are integrating historical, archaeological and ethnographic data with recent paleoenvironmental data derived from ice-cores, pollen analysis, bones, insects and other sources. The overarching goal is to develop an integrated analytical approach to complex problems of climate impact on humans, human impacts on the environment, and the environmental effects of humans' interactions with each other. Systematic working meetings are needed to advance US and international human dimensions of global change research.